Joint U.S./New Zealand Seminar on Seismic Resistance of Highway Bridges

The earthquake resistance of highway bridges has been identified as an important research topic in many places in the world. In fact, international cooperation in this important subject has been identified as a top-priority recommendation of a recent National Science Foundation sponsored workshop. This project is the second meeting of bridge research engineers in the U.S. and New Zealand. The workshop will consist of an exchange of research results completed during the interval of time from the first meeting, a discussion of progress on the general research topics previously recommended, and a field trip to inspect new installations of bridges in the U.S. Proceedings of the meeting will be published and distributed.